Representations of Infinite-dimensional Lie Algebras

Abstract
Mukhin

E. Mukhin studies the representation theory of affine Lie
algebras and their quantizations in several directions including the
theory of coinvariants of integrable representations of affine
Kac-Moody algebras (with B. Feigin, M. Jimbo and T. Miwa), the theory
of finite-dimensional representations of quantum affine groups (with
E. Frenkel) and the functors between categories of representations of
Lie algebras and quantum groups defined by Knizhnik-Zamolodchikov and
quantized Knizhnik-Zamolodchikov equations (with A. Varchenko).

The project is expected to result in description of many features of
the beautiful algebraic-combinatorial structure related to
representation theory of complex semi-simple Lie algebras and their affine and
quantum analogs. In particular, this research has connections to many areas of
mathematics such as theory of symmetric functions and combinatorics of
Young tableaux, theory of special functions, exactly solvable lattice
models, conformal field theory, massive field theory in 1+1
dimensions, etc; as all these theories have symmetries described in
terms of Lie algebras of different kind.